Magnetic Anisotropy of Sheeted Dikes in the Troodos Ophiolite

Sheeted dikes are common components of ophiolites, however the direction of magma flow in the fissures that become dikes is essentially unknown but has considerable significance in understanding the dynamics of active mid-Ocean Ridges. This project will utilize a well-studied ophiolite-the Troodos ophiolite in Cyprus- to address this question. The approach will be through analysis of Anisotropy of Magnetic Susceptibility (AMS) in the context of petrofabrics and contact relationships of dikes. Results will provide structural data that will aid interpretations of the Troodos ophiolite and provide a unique data set to assess the importance of lateral intrusive propagation in sheeted dikes generally.